Antarctica and the Global Future

The Science Museum of Minnesota plans to design, construct and circulate a five-thousand square-foot multidisciplinary exhibit whose purpose is to stimulate public interest in Antarctica and to increase understanding on the continent--its physical history, characteristics and geographies, and the approaches and tools that scientists use to help decipher and understand it. Because of the importance of Antarctica in relation to global environmental systems the exhibit will explore the physical connections between the continent and the rest of the world, as well as some of the scientific, political and economic issues and choices that will affect its future and ours as well. The exhibit will contain traditional displays of geological, biological and other museums specimens, historical and contemporary photographs, models, dioramas and descriptive text, as well as interactive displays and video. The museum will develop the exhibit in association with the Science Museum Exhibit Collaborative, among whose eight members the exhibit will circulate beginning in the spring of 1991.